Board on Physics and Astronomy

The overall objectives of the Board on Physics and Astronomy are to identify important new developments at the scientific forefronts, foster interactions with other field, strengthen connections to technology, and facilitate effective service to the nation by the scientific community. The membership of the BPA is drawn from universities, industry, and federal laboratories. Meetings are devoted to reviewing activities being carried out under its auspices, discussing critical issues, and developing new initiatives. In general, studies initiated by the BPA focusing on particular areas of physics or astronomy are carried out by ad hoc groups of experts in those areas.